Fusing Equity and Whole-School STEM Models: A Conference Proposal

Interest in whole-school STEM education models is rapidly expanding in the United States, but there is limited agreement on the essential features of effective STEM schools and a limited research base on effective practices. There are also concerns regarding equity issues associated with whole-school STEM models. This project will address these issues by planning, implementing, and evaluating the outcomes of an invitational conference on the role of equity in whole-school STEM education models, particularly Inclusive STEM Schools (ISS), at the high school level. The conference will include 25 invited participants who have expertise as researchers or practitioners in equity issues or whole-school STEM reform efforts. These participants will discuss how to: 1) Create a collective understanding among a community of stakeholders regarding the role of equity in whole-school STEM models, 2) Map, synthesize, and report the terrain of existing research around the role of equity in whole-school STEM and non-STEM models including both strengths and gaps in the research base, and 3) Identify central issues and questions that can guide future research in order to prioritize these topics and initiate productive collaborations among participants to pursue answers to critical questions. These discussions will result in two key outcomes: 1) A practitioner centered logic model that integrates equity into the design and implementation of STEM at the whole-school level, and 2) A research model that supports building an empirical understanding of the intersection between equity and whole-school STEM programs.

There are various models of STEM-centered schools, with the most significant difference across models being the enrollment criteria. This project will focus on Inclusive STEM Schools which have open enrollment and provide paths for all students to advanced learning or careers in STEM fields. Federal initiatives have promoted and supported expansion of these schools, but there is little research on the impacts of these schools, and even less research on the role of equity considerations on the design and implementation of these schools. This project will address the limited research base by focusing specifically on culturally relevant and culturally responsive programing for inclusive STEM schools and initiating a research agenda on the role of equity in designing inclusive STEM programs. The project will seek to identify effective practices, and document outcomes on diverse populations.

The Discovery Research preK-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.